The Macrodynamics of Continua (Physics)

This work will study the dynamics of interpenetrating fluids including the development of instabilities in fluidized beds and radiative transport in hot, rapidly rotating stars. Other topics include solitary structures resulting from the complex Ginzburg - Landau equation, thermonuclear convection in stellar cores and temporal chaos.